Equipment for Improving Undergraduate Laboratories in Cellular Biology

The acquisition of state-of-the-art instrumentation for under- graduate laboratories in Cell Biology is correcting this department's deficiencies in areas of functional biology. The acquisition of a dismembrator, a centrifuge and a refrigerated circulator allow for the isolation of cellular organelles; the electrophoresis unit and spectrophotometer -- the characterization of organic compounds; the clean bench, shaker, incubator and chromatography refrigerator -- the isolation and maintenance of cell cultures. The new equipment and instrumentation are making it possible to place needed emphasis on modern biotechnology and functional biology. Improved laboratories in Cell Biology are increasing student success in these courses and enhancing their readiness for professional pursuits. The grantee institution is matching the NSF award with more- than-equal sum obtained from non-Federal sources.